Workshop on Nonlinear Modeling of Geotechnical Problems: From Theory to Practice; November 2005; Baltimore, MD

The objective of this international workshop is to bring together internationally known experts in the areas of numerical model development, calibration, verification and application to assess the state-of-the-art of nonlinear numerical modeling; to assess the primary reasons for the seemingly slow rate of knowledge transfer from academia to practice; and to develop a strategy for fostering maximum transfer of the state-of-the-art knowledge to practice. To this end, experts in the following technical areas are invited: Constitutive modeling, numerical (finite element) modeling, calibration (in situ and laboratory), and geotechnical design analysis. The workshop brings together participants from foreign countries, academia, geotechnical practice, and federal government. With unprecedented advancements in computer technology and numerical modeling, real opportunities exist in modernizing the way geotechnical engineering design is performed in this country and around the world. In the past, progress in each related area took place in an uncoordinated manner. The workshop brings together experts in all relevant areas to collectively develop a strategy for modernizing geotechnical design practice in the United States and around the world.